Summer Workshop for High School Teachers of Physics and Physical Science

This project is designed for high school teachers of physical science to improve the quality of their instruction, particularly in the laboratory. To achieve this objective, participants will attend a three-week summer workshop dealing with wave motion, sound, and light. Instruction by staff will be provided in the lecture and laboratory mode. Throughout the workshop, participants will focus on the development of their own materials for use in their respective classrooms. Participants will also engage in an academic-year follow-up program intended to determine and enhance the classroom impact of the preceeding summer's activities. This program will include school visitations by the project director and an evaluation meeting of all participants in the spring of the year.